Recovery of Viewer-Centered and Object-Centered Depth from 2-D Projections

Perceiving the three-dimensional environment on the basis of the two-dimensional images projected onto the retinas of the two eyes requires integration of different sources of depth information. This project will examine the integration of two types of depth information, i.e., viewer-centered information, which provides relative distances between an observer and objects in the environment, and object-centered information, which provides relative distances within an external scene, independent of viewer location. The viewer-centered information that will be studied will include binocular disparity (differences in the object's projection onto the retinas of the two eyes as a function of relative distances from the observer) and motion parallax (variations in the velocities projected onto the eye as a function of distance from the observer). The object-centered information of primary interest is structure-from-motion (use of changing distances in the projection to recover distances between features on a three-dimensional object, under an assumption of rigid motion). One series of experiments will examine how the perceived three-dimensional shapes of objects are determined by the partitioning of motion in the retinal images into viewer-centered and object-centered components (motion parallax and structure-from- motion). A second series of experiments will examine integration of shape recovered from object-centered information into a viewer- centered representation of the three-dimensional environment. A third series of experiments will examine the changes in the perceived shapes and orientations of objects that occurs when information indicating lack of depth is added to a three- dimensional scene. A fourth series of experiments will determine the minimum number of visible features on an object needed to detect a surface from a combination of viewer-centered information (binocular disparity) and object-centered information (structure- from-motion). The objective of this research is to understand how different types of depth information are combined to provide an integrated perception of the three-dimensional environment. This has relevance for such issues as optimizing human performance in object recognition in actual three-dimensional environments and designing artificial three-dimensional displays, including displays for flight simulators and aircraft displays that represent the virtual environment.